ITR: Measuring and Sustaining the New Economy

EIA-0119063
Wessner, Charles
National Academy of Sciences

ITR: Measuring and Sustaining the New Economy

The Board on Science, Technology, and Economic Policy will conduct a study designed to identify and address the policy issues associated with the development and growth of the New Economy, stimulated by the growth of information technology. The Board will identify and evaluate key issues associated with the measurement and analysis of the New Economy, the technologies underpinning its development, and the government-industry collaboration and regulatory framework necessary to sustain its growth.